Mathematical Sciences Research Conference: Quasiconformal Mappings and Analysis; August 18-19, 1995; Ann Arbor, Michigan

DMS-9424350 Heinonen This award is to partially qupport a conference to be held at the University of Michigan in August 1995. The focus of the conference is to high light the important ties between complex analysis and other broad areas of analysis that have resulted through the theory of quasiconformal mappings. Key topics of discussion will be conformal mappings, dynamical systems, potential theory, Tiechmuller spaces and algebraic geometry, Kleinian groups and hyperbolic manifolds, partial differential equations, and quasiconformal and quasiregular mappings in space. Conformal mapping is the study of mappings of plane (and higher dimensional) domains by transformations which preserve infinitesimal angles and orientation. The maps play central roles in the geometric theory of analytic functions and potential theory by reducing many questions concerning functions defined on arbitrary domains to the same questions restricted to a class of highly symmetric domains.